MRI: Acquisition of a PC Cluster, High Performance Pan American Cluster (HiPAC)

Proposal #: CNS 10-40430
PI(s): Chu, Jul; Ahn, Seokyoung; Cunningham, Mark; Kumar, Sanjeev; Yoon, Jasang
Institution: University of Texas - Pan American
Title: MRI: Acquisition of a PC Cluster, High Performance Pan American Cluster (HiPAC)
Project Proposed:
This project, building a high-performance parallel computing instrument for numerical and network simulations, aims to support the following research projects:
- Reducing simulation time for uniprocessor and multiprocessor systems;
- Parallel sparse matrix solution using multi-core cluster with applications in analogue and digital VLSI systems;
- Biochemical computations with parallel numerical simulations;
- Future Internet switch architecture simulations and protocol validations;
- Investigation of the mixing behavior of the nano-particles in a polymer-based binder system for powder injection molding applications; and
- Quantum chemistry simulations on biomolecular active sites.
The proposed cluster, called High Performance Pan American Cluster (HiPAC), will be used by multiple scientists at the University of Texas-Pan American (UTPA), a predominantly a Hispanic institution.
Broader Impacts:
The instrument enables research in a minority serving institution that contains an 88% Hispanic and a 63% female population. The project involves student training in multi-core cluster technologies, including software and hardware parallelization. Moreover, student training encourages undergraduates to join graduate studies.